Conference on Mathematics in Quantum Computation and Technology; September 15-18, 2005; College Station, TX

This award furnishes travel support for participants in the Conference on Mathematics in Quantum Computation and Technology, held in September 2005 at Texas A&M University. Topics of the conference include interdisciplinary research on quantum computing, topological and algebraic methods in quantum computation, quantum information theory, coding, and cryptography, and nanotechnology in quantum information science. Significant funding is allocated to support participation of students, postdoctoral fellows, and junior faculty.

The conference begins with a day of tutorial lectures for participants new to the field, and the conference features a discussion session on open problems and new research opportunities, organized around suggestions of the principal speakers. This meeting provides an opportunity for interaction between leading experts and junior researchers in important related areas of quantum information science.

Conference web page:
http://www.math.tamu.edu/research/workshops/quantum/quantumconf.html